NSF Contract No. DAS-9816737 - Task Order No.25

EIA -0004043
Damon, Peter
Allied Technology Group

Title: NSF Contract No. DAS-9816737- Task Order No.25

This award is to provide proposal processing and data entry support for the Information Technology Workforce Panel Meeting.